Measurement of Mechanical Properties of Small Material Structures by Nanoindentation

ABSTRACT

Nanoindentation is an ultra-low load indentation technique that is widely
used to probe the mechanical properties of materials of small volume.
This project aims to extend our understanding of the mechanics and
mechanisms of nanoindentation on a variety of small material structures,
including carbon nanotube forests, thermal barrier coatings, dielectric
and metallic thin films, and polymer films. Reverse analysis algorithms
will be developed to extract the intrinsic mechanical properties of small
material systems. The proposed research develops new and improved
understanding of the microstructural mechanisms, provides new
methodologies of determining the mechanical properties through simple
tests, and results in better models for thin film and other small systems.
The broader impacts are through the potential significance of the research
effort in multi-scale modeling and implementing nanoscience and
technology. In addition, the proposed research fully integrates with an
education program that includes undergraduate and graduate enhancement,
and the project is further bolstered by collaboration with industry and
other universities.